Enhancement of Statistics, Research Methods and ExperimentalPsychology Laboratories

9452156 Diehl Twenty-two Macintosh Quadra 610 workstations are set up to serve courses in Statistical Methods and Experimental Psychology. Four more are for use primarily by students in Cognitive Psychology and those engaged in Independent Research and Honors Research courses. In addition to extending the repertoire of statistical tests that can be taught, availability of computers in laboratory instruction makes possible the transition from passive observation of demonstrations to active involvement in data collection and analysis, and, ultimately, to the design and implementation of student-generated research projects.